Workshop on the Foundations and Applications of Quantum Mechanics for Students of Physics

9512559 Scully This action will provide partial support for a group of minority undergraduate physics majors to attend a one-week summer school, and then a one-week workshop, on the foundations and applications of quantum mechanics. This will help these students participate in the most recent activities in theoretical physics, and will enable them to be better placed to consider future careers in science. ***